Application of methods of arithmetic geometry and homological algebra to quantum field theory and string theory

Abstract

Award: DMS-0805989
Principal Investigator: Albert Schwarz

The first of these projects concerns applications of p-adic
methods to topological strings. The goal of these projects is to
express physical quantities in terms of arithmetic geometry over
p-adic numbers and to use these expressions to prove integrality
theorems. Another set of investigations deals with
supersymmetric deformations of quantum field theories. This is
joint work with M. Movshev and applies the theory of L-infinity
and A-infinity algebras. Another project is devoted to the
analysis of the relation between string theory and quantum field
theory. The principal investigator has argued that quantum field
theory can be formulated such that time and space do not appear
as primary notions, and is planning to show that string theory
can be regarded as a quantum field theory in this sense.

These research projects are based on the application of methods
of modern mathematics to physics, particularly making use of
arithmetic geometry and homological algebra to improve our
understanding of quantum field theory and string theory.
Sophisticated mathematics originally developed for other purposes
such as the study of Diophantine equations in number theory seems
to bear directly on challenging issues in theoretical physics.